Entangling Gates for Atom Interferometers

The interplay of quantum mechanics and gravity remains an open question at the frontier of knowledge in physics. In this project, new approaches for studying the relationship between quantum mechanics and gravity will be explored by combining emerging quantum technologies with techniques for highly precise measurements of gravity. Foundational tests of quantum mechanics and gravity will be enabled through such investigations, thereby promoting the progress of science and supporting the development of technologies enabled by quantum information science. The project will support the development of a quantum-ready workforce through the training of graduate students, postdoctoral researchers, and undergraduates in a cutting-edge quantum science and technology laboratory. In addition, a course on quantum coherent sensing will be developed to broaden educational opportunities and strengthen the nation's capacity in the rapidly growing field of quantum technologies.

Entangling gate methods for light-pulse atom interferometers will be investigated and used to demonstrate gravity measurements with high-fidelity entangled matter. In so doing, a new experimental capability will be developed that integrates quantum-information-processing techniques with atom interferometry. An entangled matter-wave beam splitter using induced electric dipole-dipole interactions between atoms excited to Rydberg states will be explored in a neutral-atom optical tweezer array with single-atom detection and control. The project will combine detailed theoretical and experimental studies of quantum dynamics and interferometric protocols to generate and characterize maximally entangled states that couple internal and spatial degrees of freedom. The resulting experimental platform will establish a testbed for quantum-enhanced gravimetry, inform future efforts to explore gravitationally induced decoherence and entanglement, and create new pathways for applying quantum information science concepts to next-generation inertial sensing technologies.